Engineering Research Equipment Grant: Acquisition of High- Performance Workstation

An Engineering Research Equipment Grant is to be utilized in obtaining a computer workstation and associated equipment for research in computational fluid dynamics. Fluid flow and heat transfer are being modeled by this investigator in three-dimensional complex geometries, aimed at control of drag and enhancement of heat transfer. The capability of the investigator will be greatly enhance with this equipment.